Instrumentation and Laboratory Improvement Program in Exper-imental Psychology

A computer laboratory for experimental psychology is being developed in which students enrolled in Experimental Psychology engage in the following sequential steps: 1. the student serves as a subject in several classical studies in psychophysics, learning and cognition; 2. the student develops and programs variations of these studies; 3. the student reviews the literature in an area of interest and develops and programs an original experiment; 4. the student collects and analyzes data and interprets findings in journal-style papers; and 5. the student is encouraged to report his or her findings at regional or national conferences in experimental psychology. The impact of this laboratory will be felt by all students who take psychology courses, especially those in Experimental Psychology, Cognitive Psychology, and Research Methods in the Behavioral Sciences. The college will contribute an amount equal to the award.